Conformal Mappings and Loewner Evoluation

Proposal Number: DMS-0201435
PI: Donald Marshall and Steffen Rohde

ABSTRACT

Conformal mapping and Loewner evolutions

Marshall and Rohde will investigate conformal mappings generated
by the Loewner differential equation, and related topics. The
Loewner differential equation describes the flow associated with
the conformal mappings onto a continuously decreasing sequence of
simply connected planar domains. It relates a sequence of domains
to a real-valued function, the driving term of the equation.
Schramm's recent discovery of the stochastic Loewner evolution
SLE, the Loewner equation driven by one-dimensional Brownian
motion, has opened up a new area of investigations involving
conformal mappings, probability theory and mathematical physics.
The Loewner equation is also related to an algorithm for
numerical conformal mapping.

Conformal mappings have applications in many areas, both within
and outside of mathematics, such as control theory, heat
conduction, fluid dynamics, and complex dynamics. They are often
used to change coordinates from one region to a simpler region
like a disc. Regions with smooth boundaries are well understood.
However, the appearance of fractals in many branches of science
led to the natural problem of investigating regions bounded by
highly nonsmooth, fractal curves, from the conformal mapping
point of view. In recent years, fractal curves generated by
random processes arising, for instance, in statistical physics,
have received enormous attention. The core of Marshall's and
Rohde's research is to better understand random fractal curves
by means of conformal mappings, and conversely to study some
problems about conformal mappings by analyzing domains bounded
by fractal curves.